Research Initiation Award: Optimal Stationary Risk Sensitive Log Control

Risk Sensitive Linear-Quadratic-Gaussian (LQG) control is a modification of the classical LQG control technique that incorporates noise- induced large deviations of the system state into the design specifications. The goal of the research is to obtain definite results for Risk Sensitive LQG control for systems defined on an infinite time interval and to establish the relationship between the resulting design and existing designs for linear systems. The main themes of the research include an analysis of the large deviations properties of the Risk Sensitive LQG cost functional, design of optimal stationary Risk Sensitive LQG controllers for completely and partially observed systems, analytical evaluation of the relationship between Risk Sensitive LQG control and H-infinity control and the application of stationary Risk Sensitive LQG control to important physical control problems such as telescope pointing, robot arm pointing and airplane landing. The research is expected to result in a new design methodology for linear stationary stochastic systems that has improved noise rejection capabilities as compared to the standard LQG design. An additional potential benefit is a new viewpoint from which the important H-infinity design methodology can be evaluated.